Support for Young US Scientists Attending the 2009 International Accelerator School for Linear Colliders; September 2009; Beijing, China

The International Linear Collider (ILC) is a high priority project in the world high-energy physics program. As part of an ongoing effort to educate and train young scientists for this project, the ILC Global Design Effort (GDE), the ILC Steering Committee (ILCSC) and the International Committee for Future Accelerators (ICFA) Beam Dynamics Panel will jointly organize the Fourth International Accelerator School for Linear Colliders in 2009 in China. This award provides funds for partial support to U.S. students to attend the school.